Vertex Operator Algebras and Monstrous Moonshine

ABSTRACT, DONG The principal investigator will investigate vertex operator algebras and the monstrous moonshine. Relations among vertex operator algebras, orbifold theory, modular functions and elliptic cohomology will be studied. The principal investigator will determine various module categories and construct induction functor for vertex operator algebras. The Conway-Norton's generalized moonshine conjecture is expected to be established. Vertex operator algebras are symmetry algebras in conformal field theory which is an important physical theory describing both two-dimensional critical phenomena in condensed matter physics and classical motions of strings in string theory. This is a research that starts out in the field of algebra but moves beyond that to touch knot invariants, quantum groups, integrable systems, modular forms, and conformal and topological field theories. A successful study of this project will lead to new mathematical discoveries which will be important both in mathematics and physics.